RIA: Tough Ceramics? An Analysis of Fatigue and Creep of A12 03 with Controlled Amounts of SI02

The objective of this RIA research is to improve the elevated temperature fracture resistance of alumina ceramics by adding various amounts of glass-forming silica to the composition. It is expected that the glassy phase will aid in crack bridging at elevated temperature and thereby improve toughness. A detailed study of elevated temperature fatigue and creep crack growth will be made and the results correlated with microstructure and composition in order to identify the governing mechanisms.